U.S. - China Cooperative Research: Intergrain Exchange Coupling in Nanostructured Composites

9812082
Liu

This is a 24 month award proposed by Drs. Ping Liu and David Sellmyer, University of Nebraska, collaborating with Dr. Zhi-Dong Zhang, the Institute of Metals Research, Chinese Academy of Sciences. Dr. Liu requests funds for the P.I.s' travel, the U.S. student's support, per diem for the Chinese scholar, one month P.I.'s salary, and supplies to carry out a cooperative project with his counterpart at the Institute of Metals Research, Chinese Academy of Sciences. This project proposed to develop high energy-product magnetic films using the intergrain exchange coupling of mechanical alloying. The researchers are competent, experienced and highly respected in this field. The topic is important, and the potential impact of this study on science and technology is high. The result of this project may lead to improved magnetic and magnetic-optic storage media and magnetoelectronic devices requiring relative high-coercivity. This project also provides an excellent opportunity for training graduate students. This project is jointly supported by NSF and the Chinese Academy of Sciences.